ASPIN: Phase II Expansion

9312089 Brand This project establishes an Arizona statewide networking consortium, connects eight rural community colleges to NSFNET, and provides self-sufficiency training for the new campuses and connectivity to the network for 24 months. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years. ***